Fractals in Mathematics (Mathematics)

Research will be carried out on the following: 1) Stokes' theorem will be extended to topological manifolds. Dr. Harrison has already shown that Green's theorem is valid for 1-forms on fractal curves in the plane, as long as the 1-form is sufficiently smooth compared to the dimension of the curve. She will extend her methods into higher dimensions. If Dr. Harrison is able to extend Stokes' theorem to fractal manifolds, wide-ranging applications in physics, biology, chemistry, and many other fields are anticipated. 2) Preliminary estimates show that the dimension of an infinite minimal set of a diffeomorphism f of the circle is necessarily greater than or equal to the degree of differentiability of f minus one. Attainment of that result will imply the classic result of Denjoy - all twice differentiable diffeomorphisms of the circle with no periodic points can only have the whole circle as a minimal set. 3) The loxodromic mapping problem. A simple dynamical question on the sphere will lead to significant progress on the Seifert Conjecture. Dr. Harrison hopes to show that the answer involves deep relations between Hausdorff dimension of an invariant set and the differentiability class of the homeomorphism. Interactive activities include giving a formal lecture to the undergraduates on fractals in mathematics, organizing a weekly seminar on global analysis with graduate student participation, holding monthly workshops with women mathematicians lecturing about their work, and arranging discussion sessions on the problems women face as professional mathematicians and how to deal with them. In addition, Dr. Harrison will give one or two seminars on her research to the mathematics department. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.